Late Quaternary Paleoceanography of the Eastern Tropical Pacific

The proposed study integrates the paleoceanography and paleoproductivity of the eastern equatorial Pacific, using microfossil (foraminifera and radiolaria), geochemical (calcium carbonate, opal, and organic carbon), and isotopic (oxygen and carbon) indicators. Emphasis will be on (1) quantifying spacial paleoceanographic changes in the late Quaternary, (2) establishing relationships between paleoproductivity and paleo- circulation, and (3) assessing the contributions of productivity and preservation to the sediment record. This study will greatly extend our knowledge of how the equatorial Pacific Ocean responded to glacial/interglacial climatic changes and will provide a regional study necessary to drilling in the eastern equatorial Pacific by the Ocean Drilling Project.